The Western Pennsylvania Calculus Technology Consortium

9352874 Beatrous A technology enhanced calculus courses is being established at two campuses of the University of Pittsburgh. The approach adopted in the University courses is based on the Calculus & Mathematica (C&M) project developed at the University of Illinois by H. Porta and J. Uhl and at Ohio State University by W. Davis. Pilot courses using C&U have been taught at the University of Pittsburgh since the Spring of 1991. The CALC- TECH project will facilitate large scale implementation of the C&M project on the two University campuses. This will require workshops for faculty and graduate teaching assistants, development of materials, and evaluation.